An Imperative Mixed-Constructive Type Theory for Program Verification

The primary objective of this project is to extend logics that combine constructive and classical reasoning in verifying programs. The long-term aim is to make type-theory-based systems more applicable to the kinds of programming used in large and existing systems while still maintaining the power and conceptual unity of type theory. The proposed logic will combine a specification language with a formal logic of verified programs. The logic will support a wide spectrum of styles, including higher-order functions, simple and substructure assignment, and destructive operations on parameters. To build the logic, previous work in mixed-constructive theories is extended, where an evidence-based (constructive) semantics is augmented by classical operations, as suppressed or oracle computations. The interactions of the constructive and classical parts of a proof are limited so that the constructive parts of the proofs do not depend computationally on the classical parts of the proofs. Our work in applicative and simple imperative versions of such logics show that such logics are natural and robust. The proposed project will advance the state of knowledge in the field by helping to generate methods for verification that are better-integrated with the activity of programming.